Collaborative Research: A Global Database of Deep Sea Calcite Burial During the Last 20 Ka

9527777 Francois This project will generate global maps of deep-sea calcite burial over the last 30,000 years, using fluxes of calcite calculated from 230-Th accumulation. The results combined with models of alkalinity will be used to evaluate the role of deepsea burial of calcite in the global carbon cycle. ***